Global existence problems for the Einstein equations

DMS-0104402
Lars Andersson

This proposal is concerned with the global existence and
cosmic censorship problems for the Einstein equation, and
related issues in Lorentzian and Riemannian geometry. One of
the primary goals is to prove a nonlinear stability result
for the Einstein equation in the cosmological case. For large
data, global existence is a very hard problem, and here the
aim is to identify and study model problems as well as lower dimensional problems derived by symmetry reductions. The
structure of cosmological singularities will be studied
from the point of view of the BKL proposal. For flat,
spatially compact spacetimes, global constant mean curvature
foliations will be studied, in particular their asymptotic
behavior in the expanding direction and near the singularity.

The Einstein equation, which describes the interaction of
matter with spacetime geometry, is one of the fundamental
classical field equations of modern physics. According to the
world view of modern physics, our universe is described on
large scales by one of the simplest solutions to the Einstein equations, the Friedman-Lemaitre solution. According to this
picture, the universe has developed from a singularity (big bang)
and is expanding. The work in this project is concerned with
the nonlinear stability of this model, the behavior of spacetime
in extreme conditions near the big bang and its ultimate fate
in the expanding direction.